Aspects of Computation Theory

This work investigates a broad spectrum of problems dealing with logic in computer science that span finite model theory, database theory, complexity theory, and optimization theory. The question of whether or not certain important algorithmic problems are expressible in various logical query languages, such as Datalog and extensions of Datalog with negation, are examined. Further, the relationship between first- order logic, fixpoint logic, and polynomial-time computability on arbitrary classes of finite structures are explored. In the area of logical definability and asymptotic probabilities, 0-1 laws are investigated for certain powerful extensions of fixpoint logic and an attempt is made to find necessary and sufficient conditions for the existence of 0-1 laws under variable probability measures. In a different line of investigation, the descriptive complexity of optimization problems continues to be developed. An attempt is made to determine if there is an effective syntax for the approximable NP optimization problems and to seek structural explanations for the diverse behavior of polynomial-time optimization problems with respect to parallel approximation.